MRI: Acquisition of a Fourier Transform Raman & Infrared Spectrometer for Materials Research and Education in South Carolina

This grant supports the acquisition of a BRUKER IFS 66v/S Fourier Transform (FT) Raman and Infrared (IR) spectrometer. The optics bench of the instrument has rapid FT Raman, FTIR (far IR to near visible) and photoluminescence measurement capabilities. This instrument is configured for spectral analysis of micron-sized samples with the help of the Ramanscope and IR scope attachments. The FT Raman and IR spectrometer will assist current research activities on carbon nanotubes, thermoelectrics, photonics and biomaterials. The instrument will be used to enhance laboratory experience to students enrolled in spectroscopy courses taught at Clemson University.

Raman and infrared are two forms of vibrational spectroscopy that yield complementary information of chemical substances. Both of these are used extensively in materials, physics, chemistry and biological sciences. The instrument brings unique research capabilities to teaching institutions in South Carolina by providing a well-equipped, interdisciplinary learning facility that will be used to train undergraduate and graduate students in the use of next generation equipment for materials research. It will facilitate joint research projects between faculty members engaged in interdisciplinary research fields.